Metal- and Nonmetal Boron Clusters: Synthetic, Chemical and Mechanistic Studies

Boron-hydrogen compounds and adducts of these containing metals (metalloboranes) or carbon (carboranes) exhibit unusual types of chemical bonds which are of considerable interest to theoretical chemists. These compounds are also of growing importance as precursors to new solid state materials. This project is a continuing investigation of the mechanisms of structural transformations of boron compounds. The chemical knowledge gained will guide the development of new synthetic routes to metalloboranes and new applications of these molecules in other areas of chemistry. The mechanisms of reactions and rearrangements of model borane and heteroatom borane clusters will be determined using stereospecific boron isotopic labeling as a primary diagnostic probe. Examples include rearrangement studies of closo-carboranes and nido- and arachno-hexaboranes, mechanistic studies of polyalkylation of boranes, and characterization of long lived intermediates formed during the reduction of boron- halogen bonds by trialkyltin hydrides. Group V heteroatom- borane clusters will be prepared and their chemical, spectroscopic and structural features established. The scope of reactivity of several classes of metalloboranes including some containing Zn and Mn will be determined. The syntheses of high boron content polymers will be developed for possible applications in energy storage and solid state materials.